Asymptotic Localization, Moser-Calogero Systems and Super Symmetric Yang-Mills Theory

Abstract

Award: DMS-9971834
Principal Investigator: Kirill L. Vaninsky

We consider the problem of computation of partition function (in
thermodynamic limit) of classical particles interacting with
Moser-Calogero potentials. Our approach to the computation of
the partition function can be viewed as a version of the
well-known in symplectic geometry Duistermaat-Heckman
localization theorem. The standard requirement in such theorem is
that the Hamiltonian produces a circle action. Many physically
interesting systems, for example, finite-particle Moser-Calogero
systems do not satisfy this condition. We study our versions of
localization and convexity theorems when the dimension of
symplectic manifold become large.

At the present time the Moser-Calogero systems are subject of
intensive investigations. It turned out that some Super-Symmetric
Yang--Mills (SUSY YM) theories can be identified with the space
of spectral curves of the Moser-Calogero systems. We found a
novel and deep connection between problem of computation of
partition function of Moser-Calogero particles and problems of
SUSY YM theory. The physics can be formulated in two different
languages, but mathematical nature of the problem is the
same. Progress in these directions offers new insights into the
geometry of spectral curves, symplectic geometry and, in
particular, convexity theorems, theory of Toeplitz determinants
and spectral theory.